Late Prehistoric and Ipiutak Settlements in the Brooks Range

9413112 HALL This archaeological project in northwestern interior Alaska seeks to elucidate the character of the Ipiutak and Late Prehistoric cultures which span the transition between the 4000 year old Arctic Small Tool tradition and recent peoples of the region. The Ipiutak culture contrasts dramatically with Late Prehistoric cultures and various hypotheses to explain these differences will be tested using excavated data from numerous sites. Points of comparison will include settlement patterns, subsistence systems, house forms, tool types and paleoenvironmental data. Although some new fieldwork will be undertaken, a major component of the project consists of analysis of previously excavated but unpublished material. The product will stand as a significant contribution to anthropology and to the knowledge of cultural development in Alaska. ***